Digitization PEN: Facilitating a Shared Image Library and Occurrence Database for Ants of the Southwest as Part of the SCAN TCN

An award is made to complement the Southwest Collections of Arthropods Network (SCAN) Thematic Collection Network (TCN). SCAN is a collaborative of museums that pool their resources and digitize information for all their specimens of ground-dwelling insects and close relatives. The Museum of Comparative Zoology (MCZ) at Harvard will partner with SCAN and contribute world-renowned expertise in the identification and digitization of ants. Digital records of the some 90,000 specimens of ants from the American Southwest, including the type specimens (individual ants from which species have been described), will be imaged, digitized and made available on line. The project will be of value both to scientists studying biodiversity and the responses of ant species to climate change in the Southwest, and to non-scientists seeking to identify their species.

The broader impacts of this project will focus on the Navajo Nation, where researchers from the MCZ with Navajo scientists and student interns, have already collected more than 15,000 ants. Additional material to be developed with help from educators involved in Encyclopedia of Life (EOL) will include a local field guide to the ants. This award is made as part of the National Resource for Digitization of Biological Collections through the Advancing Digitization of Biological Collections program and all data resulting from this award will be available through the national resource (iDigBio.org).